Workshop on Revitalizing Urban Democracy, April 1998

This workshop is designed to bring together a group of political scientists representing a range of perspectives to explore the conditions necessary to revitalize urban democracy research. The workshop identifies places where basic research can help improve the functioning of urban democracy and the viability of urban communities. In addition, the workshop encourages a cross-fertilization of ideas and interaction between scholars who specialize in urban politics with scholars whose research focuses on democratic participation. The workshop combines the skills and perspectives of established scholars with those of younger investigators with a view toward helping create a future cadre of scholars engaged in issues of urban democracy. The output of the workshop will be an edited volume on revitalizing urban democracy that will be published by the Russell Sage Foundation.